Incorporating a Diversity of Scales and Applications: Chemical Engineering Undergraduate Curriculum Reform at Texas A&M University

This planning grant for the Department of Chemical Engineering at Texas A&M University seeks to incorporate a diversity of scales and applications: chemical Engineering Undergraduate Curriculum. The project goal will be to develop an implementation plan for enhancing the TAMU chemical engineering curriculum with emerging knowledge and technology applications to better meet the educational needs of students and the emerging workforce needs. This will be done by: 1) reviewing and revamping the existing chemical engineering curriculum to expand time and length scales, expand applications, evaluate new technology, expand synthesis content, and recover course time; and 2) exploring best practices in pedagogy to enable deeper learning, particularly by underrepresented groups.